Science Related Degrees: Improving the Retention of Women and Minorities through Research Experience, Mentoring and Financial Assistance

The Colorado School of Mines (CSM) is dedicated to the belief that women and minorities can make unique and substantial contributions to science related fields. A broad range of programs, such as the Women in Science, Engineering and Mathematics program (WISEM) and the Minority Engineering program (MEP), are dedicated to improving the retention and advancement of women and minorities at CSM. This project provides financial assistance for economically burdened female and minority students who are attending the Colorado School of Mines. It is our belief that by combining the high quality programs that are already offered for the retention of women and minorities with appropriate financial support, the female and minority population at CSM will continue to increase. Additionally, the project contains a strong research and mentoring component. The mentoring component is designed to provide the scholarship recipients with the guidance and encouragement necessary to complete their degrees while the research component is designed to further excite the participants' interest in science related fields.